Assessment of Earthquake Damage to Underground Pipelines

In general, the overall effects of seismically induced damage to lifeline systems continues for several months following the earthquake. A methodology to assess such damages to lifeline systems is currently not available. A data base is not available at the present time to verify the analysis of time-dependent post-earthquake damage to buried pipeline systems. This study provides a method to assess the post-earthquake damage to buried pipeline systems. This research will develop an objective measure of earthquake damage to underground pipeline systems based on field data from the 1983 Coalinga earthquake and the 1979 Imperial Valley earthquake.